U.S.-Australia Cooperative Research on Functional Role of CNS Microvasculature in Lower Vertebrates

This award provides funding to Gregory Snyder of the University of Colorado to assist his work in collaboration with Professor R.V. Baudinette of the School of Biological Sciences at the Flinders University of South Australia. Dr. Snyder is currently supported by the National Science Foundation's Division of Integrative Biology and Neurosciences to examine the morphometric characteristics of the development of microvascular loops and whether the countercurrent loops are specific to certain brain areas in marsupials. In vertebrates, capillary endothelia or glia regulate the exchange between blood and the central nervous system (CNS), forming the blood brain barrier. CNS capillaries in marsupials consist of hairpin loops which appear to add another dimension to the blood brain barrier. This project will support the travel of Dr. Snyder to Flinders University where he will continue his investigations on the development of the unique microvascular geometry in marsupials using tammar wallabies. A breeding colony of tammar wallabies is maintained at the School of Biological Sciences. Taking advantage of this colony, the development of microvascular loops in young Joey's during pouch development will be examined. The host scientist, Dr. Russell Baudinette, is a recognized authority on the physiology of marsupials. The collaborative work will advance not only the understanding of the relationships between vascular geometry and exchange, but also the adaptations that attend the transition from an aquatic to a terrestrial existence, and further the understanding of phylogenetic relationships within vertebrates.